Combinatorial Algebraic Geometry

STRUMFELS
9970254

This project concerns combinatorial problems arising from algebraic geometry, commutative algebra and symbolic computation. An essential part of this project is the training of graduate students and postdocs, specifically in the following three areas: cellular resolutions of monomial ideals and lattice ideals, Grobner deformations of regular holonomic D-modules, and multidimensional hypergeometric functions (as defined by Gel'fand-Kapranov-Zelevinsky). As part of this project, Sturmfels will write a book on ``Grobner deformations of hypergeometric differentialequations'' jointly with Mutsumi Saito and Nobuki Takayama. Anotherkey ingredient in this project is the study, jointly with Eduardo Cattani and Alicia Dickenstein of rational hypergeometric functions and its relations to multidimensional residues.

Algebraic geometry is the study of geometric objects defined by polynomial equations. It has its roots in the 19th century investigations of David Hilbert, and has increasing modern applications to fields like physics and data security.